Dick, Jane, & Spot Meet the Information Age: Diversifying Genres Used in Early Literacy Instruction

This research project tests the hypothesis that diversifying the genres of text used in early literacy instruction, focussing in particular on informational text, will aid children in using such texts in later grades and result in better learning of information based subjects such as science. The project consists of a longitudinal, experimental study. Low Social Economic Status (SES) students in 30 classes are followed for a two-year period from first through second grade. At random, 10 classes are involved in an intervention designed to diversify the genres of text used in their literacy instruction. Another 10 classes are involved in an intervention that similarly increases overall experience with text, but does not diversify the genres of texts used, thus providing a targeted comparison group. The final 10 classes comprise a traditional control group. Students' performances on norm-referenced tests of reading achievement, reading inventories, and prompted writing samples will be compared for the three groups using growth modeling methods and inferential statistics.